Internet Connections for Webster University Extended Campus Sites

Webster University will use this grant to connect eighteen of it's extended campus sites to the Internet. Webster University is a private college which it's main campus in St. Louis, MO and professionally staffed campuses in the US, Europe and Asia. Campus sites to be connected as part of this grant include: - Altamonte Springs, FL - Little Rock, AR - Bolling AFB, Washington DC - McConnell AFB, Wichita, KS - Colorado Springs, CO, - Northwest Plaza, St. Louis, MO - Denver, CO - Orlando-South, FL - Downtown St. Louis, MO - Pope AFB, NC - Greenville, SC - San Antonio, TX - Jeffersonville, IN - San Diego, CA - Kansas City, MO - Santa Teresa, NM - Las Vegas, NV - Space Coast, FL The University campus sites need the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.